OEDG: INGEOS Indians Into Geological Sciences

Abstract

INGEOS Indians into Geological Sciences

This program establishes, develops, and enhances INGEOS (Indians into Geological Sciences). INGEOS is designed to build collaboration between a tribal college (White Earth Tribal and Community College, Mahnomen, Minnesota) and a major geoscience research institution (the University of North Dakota, Grand Forks, North Dakota). INGEOS inititates a three-year pilot, dual-institution (major research university and tribal college), co-principal investigator-managed program specifically designed to bring Indian students up to and above the baccalaureate and masters level in the geosciences and to prepare them competitively for successful geoscience careers. INGEOS initiates an eight-point approach to academic success in a comprehensive retention-oriented program. These eight points include: mental health and challenge, physical health, social integration, financial management, technical exposure and experience, research exposure and experience, teaching experience (graduate students), and conference attendance.